Parallel Graph Algorithms

This project is aimed at the design of linear-processor parallel algorithms for various graph problems, and to discover the hidden structure in these apparently simple problems. The focus is on the problems of finding various types of spanning trees in graphs and on discovering new topological properties of these problems related to planarity, separability, genus, thickness, and courseness. The model of computation is the PRAM. A secondary objective, is the design of topologically-oriented workstation tools for algorithm animation and visualization to assist in this design and discovery process. These tools have the potential be a significant addition ones of paper and pencil in research related to graph theory.